Integrating Academic Support and Scholarships

The program will provide a comprehensive support and scholarship program for low-income bachelors and masters degree candidates. Included will be:
Two-year scholarships for 40 students; 34 undergraduates completing their bachelors degrees and 6 graduates completing their masters degrees. Students will be in computer science, information systems, applied mathematics, electrical and mechanical engineering and materials science.
A network of services through existing programs and organizations that includes: recruitment and outreach, family involvement, tutoring, advisement, mentoring, research and internship placements, summer enrichment programs, career exploration opportunities, workplace preparedness and job placement.
The CSEMS program interfaces with a wide variety of campus organizations and programs including partnerships with industry.
The goal and objectives of the program are to increase the number of low income students getting bachelors and masters degrees in computer science, engineering and mathematics by:
Developing a selection and monitoring system that targets students most in need with special priority for underrepresented minorities, women, students with disabilities, and transfer students.
Developing a community of CSEMS scholars by providing a network of support services to ensure academic success and degree completion.
Emphasizing research and internship opportunities to build academic skills and job readiness.
Developing recruitment and retention strategies specifically geared to students transferring from community colleges.
Developing an evaluation process to ensure program and student success.